Computation of Shapes and Topology in Proteins (Postdoctoral Research Associateship in Computational Scienceand Engineering)

Edelsbrunner 9404900 We propose to develop fast algorithms and software for problems concerning protein shapes and topology. Previously unadressed problems such as protein cavity changes during dynamics will be studied with the proposed approach.